Special Meetings: SIAM Interdisciplinary Conferences in the Mathematical and Computational Sciences

This award provides funding for Special Meetings: SIAM Interdisciplinary Conferences in the Mathematical and Computational Sciences. This series has
six conferences/workshops per year, and provides support for student and postdoctoral travel. The objectives of this special meetings series are to provide an interdisciplinary forum that enhances the understanding of advances in the mathematical and computational sciences within and beyond the mathematical sciences community and to disseminate the results and findings of the special meetings via the SIAM website, in SIAM News, proceedings, or reports, as appropriate.

Over 3,000 researchers participate in SIAM conference each year. Because of special efforts to attract graduate students and young researchers, we find that more than 20% of attendees are students. One goal is to increase the participation of students and early career professionals. Each conference focuses on a strategic area within mathematical and computational sciences and its key applications to other areas of science, engineering, and
technology.